RR:(Instrumentation) Shooting in 3D with the Zmini Camera

This project from an EPSCoR state, acquiring A Zmini camera that captures 3D information (real time color and depth) at video rates, aims to model and render 3D information. Activities include
Acquiring a cloud of points using the Zmini camera from multiple viewpoints,
Generating a surface using a modified marching cubes algorithm, and
Automatically binding the model to a skeleton for character animation (called auto-rigging).
Thus, point cloud modeling from the camera will be used to create surfaces, specifically humanoid, that can be auto-rigged and animated. Both Computer Science Graphics (CSG) and Digital Production Arts (DPA) programs will use the camera. The research involves the following projects:
Surface Reconstruction from Point Cloud and
Stream Line Digital Character Generation.

Broader Impact: The use of the Zmini camera to capture and animate 3D images promises to have significant impact in teaching and learning, as well as advancing discovery and understanding of learners.
The device will provide students and faculty with the opportunity to incorporate image-based modeling in their work at the DPA program. The camera will be used in classes with a high percentage of minority enrollment where students will gain research experience in the conference presentation interactive program.